CHAI: Increasing Cyberinfrastructure Security at Red Lake Nation College

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering and mathematics (STEM) instructional and research capacities of specific institutions of higher education that serve the Nation's indigenous students. Expanding the instructional, research, and development capacity at these institutions expands the opportunities for students to pursue challenging, rewarding careers in STEM fields, provides for research studies in areas that may be locally relevant, and encourages a faculty community to look beyond the traditional classroom for intellectual and professional growth. This project aligns directly with that goal by strengthening the STEM cyberinfrastructure at Red Lake Nation College (RLNC) for instructional and research activities. The project aims to enhance cyberinfrastructure and cybersecurity necessary to facilitate development of the institution in STEM fields and for the protection of sensitive data.

The project upgrades specific STEM IT resources at the institution to improve the resiliency and security of STEM operations, data management, and instruction and research enterprises. Providing training for staff, faculty, and student interns in use and upkeep of equipment along with good cybersecurity practices hardens the human element of cybersecurity. Improvements to RLNC's network and cybersecurity strengthen the college's ability to offer in-person and on-line courses at two campuses, including communication between the campuses. The activities for developing STEM cyberinfrastructure directly support current and future projects. Students benefit from increased access to online resources and virtual courses. STEM research activities are aided and enabled by advances in cyberinfrastructure at the institution.